Private Information, Communication and Contracting (Computer and Information Science)

This project studies the organization of markets when buyers and sellers are asymmetrically informed. The research is divided into two parts. The first part concerns contracting under asymmetric information when specialized investments lock a buyer into one or more suppliers over some time horizon. Several specific studies develop theoretical models that characterize optimal contracts and the optimal design of mechanisms for awarding contracts under various environmental assumptions, including information assumptions. The second part of this research studies the performance of experience goods markets, where the seller is privately informed about product characteristics, and where information about the existence of the product diffuses gradually. This research derives predictions about the equilibrium time-paths of price, advertising, and quality in such markets. The research is significant because it will add to our understanding of how different organizational hierarchies, whose design is driven by the nature and availability of information, affect private and public decisions.